Temperature Modulation Method for In-Situ Measurement of Surface Temperature and Emissivity

This is a SBIR Phase I project to develop a novel non-intrusive surface temperature measurement technique for the in- situdetermination of both temperature and emissivity. The technique employs small local modulation of the temperature of the surface to be measured and detection of the modulated surface radiation. By modulating the surface radiation, extraneous radiation from other surrounding bodies is excluded, and the spectral shape of the modulated radiation is a function of surface temperature. The objective of the project is to demonstrate the technique at temperatures in the range of 1700 K. The approach will be primarily experimental and will involve the construction of a test system, and comparison of the results obtained from this technique with those of conventional techniques. The successful application of this device would be useful in monitoring industrial processes, boiler operation, diagnostics in gas turbines, jet engines, and rockets, and various control applications.